Equipment: MRI: Track #1 Acquisition of High-performance Computing Cluster to Support Undergraduate Research at Trinity University

This award supports the acquisition of a high-performance computing cluster at Trinity University to enable undergraduate research and training across multiple science, technology, engineering, and mathematics (STEM) fields. Modern quantitative science increasingly depends on advanced computational infrastructure to solve complex scientific problems and to prepare the next generation of scientists to use these tools fluently. By integrating high-caliber computing tools into a primarily undergraduate institution, this project serves the national interest by directly preparing a diverse, skilled scientific workforce for highly skilled careers in artificial intelligence, big data analysis, and advanced research. The project expands participation for all students through established mentorship programs, summer research initiatives, and public outreach. It also transforms undergraduate education by embedding computationally intensive, real-world problem-solving directly into the classroom across biology, computer science, chemistry, physics, mathematics, and engineering. Together, these efforts strengthen scientific literacy and contribute to societal benefit.

This high-performance computing cluster establishes a hybrid CPU/GPU architecture featuring a scalable multi-node network optimized for high-bandwidth, low-latency data transfers and data-intensive workflows. The system is configured with high-core-count processors, scientific-grade graphics processing units (GPUs) for artificial intelligence applications, dedicated high-memory nodes to facilitate whole-genome sequencing, and expansive network-attached storage. The platform utilizes optimized cluster management software to efficiently schedule concurrent, multi-disciplinary computing workflows. The primary technical objective is to enable parallelized multiscale modeling, machine learning, and complex simulations. Methodological approaches enabled by this instrument include applying deep neural networks to predict mammalian protein function, utilizing high-throughput bioinformatics and environmental DNA metabarcoding to survey Amazonian biodiversity, constructing potential energy surfaces using density functional theory and post-Hartree Fock electronic structure models, and supporting multiscale molecular dynamics simulations of protein folding on complex cellular membranes and calibrated regularized Stokeslet boundary methods to model computational fluid dynamics at low Reynolds numbers. Together, these capabilities position Trinity University to conduct cutting-edge, computationally driven research across disciplines at a scale typically inaccessible to primarily undergraduate institutions.